An Atomic Force Microscope for Biological Imaging, Lithography and Force Measurements

This award will be used to acquire an atomic force microscope (AFM) with environmental control and dip-pen nanolithography capabilities to pursue research and education at the nano-to-micro length scale for complex biosystems. The instrumentation will be used for projects studying the basic science of cellular and subcellular mechanics and projects at the cutting edge of new nanoscale biomaterials and device design. This instrumentation will also be used to train the next generation of students in interdisciplinary nanobioscience by expanding their experimental capabilities, promoting an intellectual curiosity about the nanoscale, and motivating them to freely explore their own ideas to create and evaluate new nanostructures and devices.

The educational and broader societal impact of this AFM will be (1) to develop new subject-specific laboratories and demonstrations for advanced undergraduate and graduate students; (2) to introduce K-12 inner city students to unique experiences in micro- and nanoscale fabrication, through an existing GK-12 urban program Project STAMP: Science, Technology and Math Partnerships; (3) to work directly with Roxbury Community College and Bridgewater State College to provide unique access to these nanolithography tools with the goal of giving students memorable, hands-on laboratory experiences.